Concrete Problems in Computational Complexity Theory

Concrete Problems in Computational Complexity Theory

Nicholas Pippenger
Department of Computer Science
Princeton University

The goal of computational complexity theory is to determine the
computational resources needed to carry out various computational tasks.
The resources measured may involve hardware (such as gates used to
construct a circuit, or area on a chip) or software (such as the time or
space used in the execution of a program on a machine), and the tasks
considered may range from a simple addition of two integers to a large
algebraic or geometric computation.

The proposed research will deal primarily with "low level" complexity
theory, in which the resources required grow modestly (at most quadratically)
with the size of the task. Examples of such tasks are furnished by the
arithmetic operations (addition, subtraction, multiplication, division
and square-root extraction) performed by the execution of single
instructions in a computer. For these tasks, hardware-oriented resource
measures are most appropriate in most cases.

The proposed research will also explore problems involving fault-tolerant
computing. There is a classical theory concerning transient errors in
circuits that delineates fairly clearly the theoretical possibilities and
limitations in this situation. The proposed research will deal with two
aspects of fault-tolerant computing about which much less is known:
permanent errors occurring over time, and transient errors in quantum
communication and computation. For these questions, hardware-oriented
resource measures are again most appropriate.

The broader impacts of the proposed research lie in the promotion of
interdisciplinary links between theoretical computer science on one hand,
and mathematics and physics on the other. It has of course always been the
case that computer scientists have drawn heavily on techniques and results
from mathematics and physics, since mathematics and physics form the
foundations of computer science and engineering. What is proposed here,
however, is to return the favor by applying methods developed within
theoretical computer science to problems of interest to mathematicians
and physicists.